Collaborative Research: CMG: Adaptive High-Order Methods for Nonhydrostatic Numerical Weather Prediction

This project is a new collaboration between geoscientists
and mathematicians at two locations: Norman, Oklahoma and Boulder,
Colorado. The initiative brings scientists new to the atmospheric
science community to aid in the development of parallel, adaptive,
unstructured, high-order methods for atmospheric modeling. Established
atmospheric modelers will guide the effort, offering their experience
with numerical modeling of complex weather systems. The collaboration
also brings together the considerable expertise and resources of the
National Center for Atmospheric Research (NCAR) located in Boulder,
Colorado and the National Severe Storms Laboratory (NSSL) located in
Norman, Oklahoma. The NCAR effort will build on its experience of
developing high-order adaptive spectral element solvers for the
shallow water equations, moving to high-order finite-volume adaptive
Discontinuous Galerkin methods for the nonhydrostatic equation set.
The NSSL effort will aid in this development by addressing the
adaptivity and parallel computing issues and testing the methods on a suite of
test problems of increasing complexity with a central long term goal of
modeling tornadoes.

Weather simulation is a complex problem involving many different scales
and requiring high resolution solutions of the equations governing the
Earth's atmosphere. Recently, it has been recognized that localized flow
structures, such as storms, may play an important role in obtaining the best
weather forecast. Higher resolution weather simulations are required in
applications in the atmospheric and air quality communities, at operational centers
around the country attempting to forecast significant weather events, and for
research endeavors that focus on the dynamics of severe storms such as
hurricanes or tornadoes. Recent developments in computational mathematics techniques may be
applicable to these models in order to tailor them to treatment of local
structures such as storms and fronts. This project aims to create a collaboration between
mathematicians who have developed these methods and meteorologists who
have modeled and studied such events, that will yield more efficient
and accurate models. Across the globe weather modelers are striving to increase resolution
for the models, but are limited in their methodology to only reducing
the spacing, thereby increasing computer time significantly. The US is
already behind in that race. This project would leapfrog that strategy
by developing more efficient models that can automatically hone in on
localized structures with high precision.